Symposium: The Exploration of Sequence Space Selecting Functional Molecules from Combinatorial Libraries to be held at Indiana University, Bloomington, October 12-15, 1995

; R o o t E n t r y F y F @ C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l L F L F F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT jack cohen jack cohen @ 7C F @ F @ A7 F @ Microsoft Word 6.0 2 S u m m a r y I n f o r m a t i o n ( # ' ( * + , - / 0 3 4 u c u D c U c c # ' ) * + , . / 1 2 3 4 ' ' ' ' ' ' ' , 0 , ! K @ Normal a " A@ " Default Paragraph Font +@ Endnote Text c *@ Endnote Reference h " @ " Footnote Text c &@ ! Footnote Reference h , @ , TOC 1 0 , $ ( @ ( TOC 2 0 , $ ( @ ( TOC 3 p 0 , $ ( @ ( TOC 4 @ 0 , $ ( @ ( TOC 5 0 , $ & @ & TOC 6 0 , $ @ TOC 7 0 , & @ & TOC 8 0 , $ & @ & TOC 9 0 , $ * @ * Index 1 ` , $ * @ * Index 2 0 , $ & .@ & TOA Heading , $ "@ Caption c O _Equation Caption 4 4 4 4 / jack cohen!\\CLM11\MCBPUB\BIOCHEM\ELLING.DOC @HP DeskJet 500 LPT1: HPDSKJET HP DeskJet 500 D L f , , d HP DeskJet 500 D L f , , d & & & & C Times New Roman Symbol & Arial 5 Courier New 9 ) " $ ( jack cohen jack cohen ; e = e 4 ' " " " " " " " L L L L L d n L C x | | | | | | | L T ( " | | | | | | " " | x | | | | " | " | 6 > " " " " | | / | 9512768 Ellington This proposal requests funds in partial support of a symposium to be held on the campus of Indiana University, Bloomington from October 12 15, l995. The symposium is entitled The Exploration of Sequence Space: Selecting Functional Molecules from Combinatorial Libraries. This conference represents an acknowledgment of the fact that the interface between chemistry and biology has become increasingly integrated, and that scientists from both areas have begun to contribute to a new interdisciplinary field, combinatorial chemistry. Although combinatorial techniques are still in their infancy, they are nonetheless becoming increasingly important in exploring biological complexity and diversity, in understanding how chemical and biochemical self organization can occur, and in the design and discovery of new drugs. The meeting is the ninth in an annual series presented under the auspices of the Indiana Institute for Molecular and Cellular Biology at Indiana University. The objectives of the organizing committee are to bring together an international group o